Signature File Methods for Text Data Bases (Computer and Information Science)

This research develops the design and analysis of efficient searching methods for text data bases. It utilizes a new method, called signature files, which works well for archival applications with very active updating. The method is especially suitable for optical disks. Specifically, signature files are compared with other indexing methods analytically and through simulation. Several alternative signature extraction methods are implemented and evaluated to verify analytical results, and integrated signature methods, which cover both the text itself and "keyword" attributes, are developed. To perform realistic experiments, a prototype retrieval system is used, which stores and retrieves abstracts of technical articles. This prototype is available to researchers at the University of Maryland, to assist them with literature searching and to give feedback to the system designers about what capabilities are needed and how the system is used. There is an enormous and increasing amount of scientific knowledge captured in the form of published articles and reports. This "text database" is far too large to be effectively used without computer assistance. Consequently, research on automatic retrieval methods, which allow effective and extensive searching to be done with computer systems, is of paramount scientific and practical importance.